New York Hall of Science Career Ladder Replication

This project is making efforts to see a national replication/dissemination of the New York Hall of Science's successful "Science Career Ladder", a career access program targeted to women and minorities. The funds are being used to develop materials including a videotape and manual for us by replication sites. The initial replication is taking place at 25 science-technology centers and was begun with a Conference. Together, the conference and materials are providing an information and support system for replication of the Science Career Ladder at other sites. The Science Career Ladder model recruits junior and senior high school women and minorities as Explainers for the museum, and is motivating them to become precollege teachers of science. It is a program aimed at enriching the experience for the students when they go on to undergraduate schools and are preparing to be teachers. The high school students gain experience and knowledge through being trained as Explainers, and are then moved more deeply into the workings of the museum, both exhibits and scientific research, as undergraduates. The program is carried out in collaboration with five public colleges in the New York metropolitan area.